Nanotechnology: Interdisciplinary Research and Education Workshop; August 11-13, 2004; Bangalore, India

This proposal requests support for a workshop on interdisciplinary research and educational needs, with participation by key academic and industrial researchers in nanotechnology from United States and India. The workshop dialog will focus on

o Key research ideas
o Underlying interdisciplinary aspects of the research
o Key issues of the interdisciplinary research and effective mechanisms for the pursuit of research
o Undergraduate and graduate teaching that addresses interdisciplinary research needs.

The workshop will take place in Bangalore, India Aug. 11-13, 2004 at Indian Institute of
Science. This workshop follows the first US-India Workshop on Nanotechnology that took place at University of California, Santa Barbara in 2001 with support from Indo-US Science and Technology Forum.